Dissertation Research: Genetic Basis for Malathion Resistance in Drosophila

9321625 Cochrane The evolution of insecticide resistance in insect populations is a problem of agricultural, economic and environmental significance. Yet despite the increasing magnitude of this problem, the genetic basis for the response of an insect population to insecticides is not clearly understood. Insect populations exhibit different genetic responses under field and laboratory conditions. Furthermore, the effects of insecticide exposure on closely related species are unknown. The research will address the evolution of insecticide resistance in field populations of two closely related species of the fruitfly, Drosophila, which have a 20 year history of exposure to the insecticide malathion. Despite the close relationship of these species, one population is an average of 10 times more resistant than the other.%%% The immediate goal of the research is to determine the genetic basis for the difference in resistance levels between these two populations. Classical genetic procedure will be coupled with biochemical analysis of known detoxification systems to identify major genes contributing to malathion resistance. The basis of resistance in these populations will thus be compared with those from geographically distinct populations of both species to determine the significance of the differences between the species. This work will be of a direct benefit to agricultural pest management strategies by determining the effect of insecticide exposure on closely related species. This knowledge may then be directly used to influence the development of future pest management programs.***